Support for Participation in the 9th International Brick/ Block Masonry Conference; Berlin Germany; October 13-16, 1991

This project supports a group of researchers to attend the 9th International Brick/Block Masonry Conference at Berlin, Germany, October 13-16, 1991.